1988 Gordon Research Conference on Catalysis; Newport, Rhode Island, August 1-5, 1988

Partial support is provided for the 1988 Gordon Research Conference on Catalysis to be held August 1-5, 1988, at Newport, Rhode Island. Funds are intended to support speakers and to provide for attendance of researchers who lack other funds, especially young faculty.